Acquisition of Housing Facility for Visiting Scientists

9412897 Paul, V. The University of Guam Marine Laboratory will build a housing facility for accommodating visiting researchers including visiting graduate students. The 2000 sq ft building will contain three bedrooms, 2 bathrooms, a kitchen, and a living area for dormitory style accommodations and a separate suite with two bedrooms, one bath, and a kitchen for an apartment style unit. Earlier support allowed the university to complete the architectural and engineering plans for this building. Such a facility is considered extremely important because 1) the institution is in an isolated academic environment and visiting investigators are a valuable resource for interactions and new ideas, and 2) skyrocketing rents and a serious housing shortage combine to make it difficult to impossible to find adequate lodging for visitors staying less than 6 months. The University of Guam Laboratory supports the research of 8 full-time faculty, numerous graduate and undergraduate students, as well as visiting investigators. The research demands on facility have increased due to the addition of new faculty at the laboratory, the recent establishment of collaborative programs between the Marine Laboratory and the University of Hawaii and the University of the Ryukyus (Okinawa, Japan), and the awareness of the Marine Laboratory as a resource for coral reef research by over 550 scientists who attended the 7th International Coral Reef Symposium on Guam in June 1992. The new building will allow the support of increasing numbers of visiting scientists that wish to conduct research at the laboratory , which will in turn enhance the research environment.